Cross-Disciplinary Research Training in Mathematical Biology

The investigator and his colleagues develop an
interdisciplinary training program that would give graduate
students substantive training in both mathematics and biology.
The goal is to produce students competent in both disciplines,
with genuine expertise in applied mathematics and some specific
area of biology: biofluids, ecology and evolutionary biology,
neuroscience, or physiology. Training is built on the Special
Interest Group, which includes faculty members from both
mathematics and biology, students and postdocs, and
industry-based researchers where appropriate.
Modern biology is increasingly mathematical and
computational. Education and training in components of both
disciplines is needed to prepare people for the 21st century
workforce, for leading-edge research, and for teaching. This
pilot project includes innovative aspects in its thematic
organization, flexible arrangement of both common and
area-specific content, interdisciplinary teaming, combination of
theoretical and experimental training, and involvement of
industrial partners. The combination is promising for fostering
long-term changes by growing a generation of scientists,
mathematicians, and engineers who share language and skills well
enough to take up and solve key problems.